International Astronomical Union (IAU) Symposium 273: Physics of Sun and Star Spots

This award will provide partial support for the California State University Northridge to host the International Astronomical (IAU) Symposium 273 on the "Physics of Sun and Star Spots." The aim of the conference is to bring together researchers in solar and stellar physics, who will discuss studies of the long term evolution of stellar magnetism and the origin of the spot phenomenon.

Invited speakers will be selected by the scientific organizing committee from the pool of scientists working in the field of stellar and solar magnetism and activity around the world. The speaker roster will include both established and young researchers. Contributed talks will be given by graduate students and post-doctoral fellows. The results of the conference will be published as part of the series of Symposia of the International Astronomical Union.